Undergraduate Research at the Rocky Mountain Biological Laboratory

This award provides funds to continue a successful Research Experiences for Undergraduates Site at The Rocky Mountain Biological Laboratory. Ten undergraduate students per year for three years, will be supported to participate in research focusing on field biology studies. The RMBL has a strong tradition of field research and education, and has been providing undergraduate research opportunities for 64 years. Each student will attend the RMBL for 10 weeks. Guidance will be provided in scientific design, project selection and initiation, and project completion. A ratio of one supervising research mentor for each student will be maintained. Students will be encouraged to participate in the many research opportunities available at the RMBL, such as formal and informal seminars, interactions with visiting scientists, and exposure to all levels of a field biology community. The intellectual progress of each student will be monitored carefully by the Program Coordinator and by each research mentor, as the summer proceeds and students move from relative dependence to relative independence in their research pursuits. The RMBL is particularly proud of its success in educating women interested in field biology, and in attracting senior female scientists. Plans for increasing minority student participation are included in this award.